Relationships Between Cloud and Thermodynamic Variables

An extremely important set of uncertainties in climate change theories are those associated with cloud/radiative/thermodynamic/ dynamic interactions. Among the most troublesome of these uncertainties are those associated with the nature of the large- scale thermodynamics processes leading to the observed complex structure of clouds at any given location and time. Currently, climate models generally relate cloud fractions and liquid water contents to local relative humidity or convection precipitation rates. The formulas used are based on the results of theory and a few short-term detailed field experiments. Analyses of global, long-term observations are needed to verify these parameterizations and to test their applicability to regions, seasons or climatic eras, which were not directly sampled in the field experiments This project will carry out such analyses with the best available regularly observed data. These data will consist of satellite derived estimates of fractional cover of seven cloud 'types' derived from the International Satellite Cloud Climatology Project, thermodynamics and dynamics variables from the operational analyses of the European Centre for Medium-Range Weather Forecasting and standard observations of precipitation form surface measurements. In addition to using the previously derived cloud types, the PI will derive and utilize a new specification of cloud fraction at standard pressure level. Variations of these parameters for much of the globe over seasonal and interannual time scales will be used to derive new and assess current interrelationships used in the cloud parameterizations of climate and long-range forecast models.